Some Innovative Methods for Tomography Problems

In 1997 the PI and Kazantsev obtained the first explicit inversion formula
for the emission tomography problem using the intimate connection between
this problem and elliptic systems with operator coefficients.In this
project the PI plans to generalize this method to the following cases: (1)
cases with partial or incomplete data; (2) cases where the unknown function
is replaced by a tensor field; (3) cases where a general scattering term is
also present in a transport equation; (4) cases where straight line rays are
replaced by geodesic lines which may be known or unknown; (5) cases where the
attenuation coefficient is also unknown; (6) cases with reflection on the
boundary. We also plan to consider inverse problems with multiple boundary
measurements for elliptic and hyperbolic operators with partial Cauchy data
and develop for them the method of Carleman estimates together with the
geometric optics construction.

In 1895 Rontgen discovered the so-called X-rays and made the first
radiograph (of his wife's hand).In 1917 Radon considered the problem of
reconstructing a function on the plane from the integrals of this function
over all possible straight lines and obtained an explicit inversion
formula. In the mid seventies these two discoveries joined in the X-ray
tomograph. In 1979 an English engineer, Hounsfield, and an American
mathematician, Cormack, received the Nobel prize in medicine for its
development. Using X-ray tomography, one can find the attenuation of a body. If
we replace now the X-rays by more "soft" rays we obtain a much more difficult
tomography problems. For example, in a seismic tomography one generates elastic
waves in the earth using acoustical sources at the earth's surface.The waves
that return to the surface of the earth are observed. The problem is to
reconstruct the elastic properties of the earth from this data. In this case
rays will be unknown curves that depends on the elastic properties. In the
emission tomography problem it is required to find unknown radioactive source
distribution in a body with a known attenuation. It was only in 1997 that the
PI and Kazantsev obtained the first inversion formula for this problem with
arbitrary smooth attenuation. In this project, the PI plans to generalize this
result to the following cases: (1) cases with incomplete data and curved rays
(this is important for oil exploration for instance); (2) cases where the
attenuation coefficient is also unknown (this is important for medical
imaging, since we reduce the need to use the X-ray tomography for
determination of the attenuation); (3) cases where the unknown scalar function
is replaced by a vector or a tensor field (non-destructive evaluation of
vector and tensor fields in aerodynamics and material sciences
respectively). The project will integrate research and education since the PI plans to use
new facts from the project in advanced "Math and Engineering courses ".